SpaceTEC National Resource Center

The National Center of Excellence for Aerospace Technical Education (SpaceTEC), a consortium of 11 partner community colleges and universities, has developed and disseminated educational materials, established and improved associate degree programs, and implemented an industry-endorsed, nationally-recognized certification for aerospace technicians. As a national resource center, SpaceTEC supports the nation's civil aerospace initiatives, Department of Defense personnel and the fledgling commercial space industry by developing a better educated technical workforce that can address the significant changes in aerospace systems for research, defense and commercial purposes. A comprehensive and accessible repository of aerospace-related technical education materials and successful practices is established and maintained. Increased opportunities are created for students and incumbent workers to seek and complete an aerospace technical degree. Through industry and government support the partnership is expanded to ensure that the aerospace technology curriculum is current and relevant to industry and technological practices. Professional development workshops are provided to enhance and upgrade the skills and knowledge of educators and technicians. The Certified Aerospace Technician is established as a national standard for the industry and expects to certify 600 technicians nationally. Evaluation is done by local advisory committees, a National Aerospace Technology Advisory Committee, the National Visiting Committee and an external evaluator.